Inverse Boundary Problems

The proposer plans to continue his work on inverse boundary problems. For
the case of Electrical Impedance Tomography (EIT) he plans to consider the
problem in which one makes electrical measurements only on part of the
boundary. In EIT he also plans to consider the case of conductivities
having jump type singularities as well as the identifiability problem for
anisotropic conductors. Another inverse boundary problem that the proposer
plans to consider is whether the geodesic distance (travel times) between
points on the boundary of a domain or Riemannian manifold with boundary,
satisfying certain conditions, determines uniquely the metric in the
interior up to an isometry which is the identity on the boundary. The
third inverse problem is the problem of Reflection Seismology. In
particular the proposer plans to consider the problem of seismic migration
when caustics are present and the case in which the Earth is modeled as an
anisotropic elastic medium instead of an acoustic medium.

Inverse boundary problems are a class of problems in which one seeks to
determine the internal properties of a medium by performing measurements
along the boundary of the medium. These inverse problems arise in many
important physical situations, ranging from geophysics to medical imaging
to the non-destructive evaluation of materials. The proposer plans to
consider the case of Electrical Impedance Tomography (EIT). The
measurements in this case are voltage and current measurements from which
one attempts to infer the internal conductivity of the medium. EIT has
been proposed as a diagnostic tool in medicine since organs and tissues
have quite different conductivities. Another important inverse boundary
value problem arising in geophysics that the proposer plans to consider is
Reflection Seismology. In this case one attempts to determine the
substructure of the Earth by measuring the response at the surface
produced by impulses located also on the surface. One of the main
applications of this inverse problem is in locating hydrocarbons.Other
potential applications are to improving ultrasound and sonar.